Implementation of a Parallel Computer with an Efficient Fetch-and-OP Network

New methods on the design of a coprocessor to Motorola 68020 for executing fetch-and-op instructions are being studied. The goal of this research is to show that the fetch-and-op network can support all synchronization and global access primitives that earlier networks supported at a lower cost in hardware and can operate faster, or comparable in time, in software. A Macintosh- II computer is being used for the development processor, and a coprocessor will be designed and fabricated on a Nu-bus board to be plugged into it, using McCAD on the Macintosh, and printed circuit layout subcontracted out to local industry. A wire-wrap board is being built and connected to the Macintosh-II coprocessor to simulate external signals that would be supplied to the coprocessor by other coprocessors in a large parallel system.